Undergraduate Research Participation Program in Science

This award provides funds to the Roswell Park Memorial Institute to establish a Research Experiences for Undergraduates Site. The objectives of the program are: (1) to expose the trainees to an atmosphere of an active research environment; (2) to continually challenge them to develop an interest in science; (3) to allow the trainees to witness scientific creativity; and (4) to help them in planning their academic careers in science. The students fulfill these objectives by spending 80% of their time in an active research laboratory under direct supervision of a senior investigator where they are assigned their own research project to conduct under the direct supervision of their mentor. The remaining 20% of the time is spent attending lectures and multidisciplinary seminars in specific areas of biology, chemistry and biophysics conducted at the Institute. The allocation of time away from the laboratory and in the classroom is important to broaden the trainees horizons into other areas of science. A Scientific Mini-conference is held at the conclusion of the program. Students are required to prepare both an oral and poster presentation for this conference. Projects will be assigned to trainees in Cellular and Molecular Biology. The Education Department, with the senior investigators, carefully match trainees to make sure the college students' interests and the objectives of the program are fulfilled. A one- to-one relationship between trainee and senior investigator is sought when the trainee is assigned to an active research laboratory to do his project work.